Unifying Current Theories of Ecology

The proposed collaborative working group will bring together a body of researchers
to integrate three areas of ecology that have advanced rapidly over the past decade:
metabolic theory, neutral biodiversity theory, and spatial macroecology. The goal of this
working group will be to delineate the separate and overlapping realms of each area and to
assess the prospects of synthesizing them into a unified theory that integrates ecological and
evolutionary patterns and processes at multiple scales and throughout the biological
hierarchy. Such a unified theory of ecology would lay the foundation for understanding and
predicting the response of real-world systems to global change.